Building a Facet-Based Diagnostic Assessment System for Promoting Learning in Classrooms

This SGER project will lay the groundwork for building classroom
assessment tools for secondary science teachers and students in the State
of Washington. The investigators will identify the particular
understandings of physical science concepts, processes, and nature of
science for students in grades 6 through 10. Approximately 200 facets of
students thinking will be identified by reviewing existing research on
students conceptions and by conducting research in several school
districts across the state. Minstrell's Facets of Thinking framework can
be used to write questions for diagnosing specific problematic
understandings and for designing instruction that targets these
understandings. The facets perspective has made substantial and
significant changes for about thirty high school teachers of physics.
This project is to begin scaling-up that perspective to serve about 2000
science teachers and upwards to 400,000 secondary students each year.
Results of the project will be used during fall of 2000 by the state to
revise the official version of Washington State Science Assessments which
has been legislated for grades 8 and 10. The project will also inform a
next round of projects that will create classroom, diagnostic tools for
assessment and teaching in the service of better learning. (Please see
http://www.talariainc.com and
http://weber.u.washington.edu/~huntlab/diagnoser/facetcode.html )